Presidential Young Investigator Award

This research will focus on enhancing the capabilities of imaging systems in terms of data acquisition, coding, communication, signal processing, and image reconstruction to achieve high resolution images.